SBIR Phase II: Large-Scale Manufacturing Process for Uniform Semiconductor Nanowires

This Small Business Innovation Research (SBIR) Phase II project will develop an innovative
manufacturing technology for inorganic semiconductor nanowires for use in high-performance thin-film electronics products. In Phase I, the company successfully demonstrated the feasibility of this innovative manufacturing method to yield large volumes of high quality, uniform nanowire nanostructures of the quality and quality required to enable the application of these materials in high performance thin-film electronics. Specifically, the company: (1) setup a prototype nanowire manufacturing reactor capable of large-volume production; (2) identified critical process parameters affecting materials quality and methods to optimize them; and (3) established control over the process parameters enabling the precise fabrication of nanowires. Phase II research will build on the knowledge gained in Phase I, and focus on further development and optimization of this system into a fully automated, manufacturing system capable of pilot scale production of nanowires for commercialization in high performance electronics applications including displays and phased array antennas.

Commercially, the project represents an innovative approach to a manufacturing process technology for large-scale production of high quality inorganic semiconductor nanowires, and will enable wide-spread production of low-cost high-performance electronics fabricated by roll-to-roll manufacturing. Applications of these materials exist in novel electronic devices and systems including specific uses in displays, RFIDs, phased array antennas and sensors.